Research Experiences for Undergraduates at the University of California, Santa Cruz

Dr. W. Todd Wipke and other members of the Chemistry Department of University of California at Santa Cruz are being supported for a Research Experiences for Undergraduates (REU) site in Chemistry. For the period 1993-5, eleven undergraduate students will spend ten weeks each summer actively engaged in a variety of research projects. Projects cover the traditional areas of chemistry- inorganic, organic, physical and biochemistry. A unique feature of this program is the focus on women, minority and handicapped students.